REU Site: Applications of Microscopy and Microanalysis to Multidisciplinary Research

Portland State University operates a Research Experience for Undergraduates (REU) Site. The REU Site offers research opportunities in applications of microscopy and microanalysis to multidisciplinary research. Undergraduate research projects are supervised by faculty in the departments of physics, chemistry, geology, environmental biology and mechanical engineering at Portland State. Eight undergraduate students are recruited every year for an eight-week summer research experience. The program includes an academic year component that involves ten student participants. The recruitment focus is on students from four-year colleges and community colleges in the greater Portland area.
%%%
***